Explaining Crime and Violence: The Utility of African-American Theories and Perspectives

9632148 Tatum Both majority and minority scholars have argued for the incorporation of minority perspectives into criminological literacy and the study of crime. This research will assess the utility of the criminological literature of African-American scholars for mainstream theorizing and helping to frame testable hypotheses of crime causation. After identifying and describing theories and perspectives advanced by African-American scholars, the research will use content analysis to: (1) analyze underlying assumptions; (2) analyze the conceptualization and use of core theoretical variables; (3) identify literature that may be classified as African-American criminology" and describe the boundaries of this theoretical knowledge; and (4) assess what these theories and perspectives add to mainstream criminology and the study of crime and violence. The identification and analysis of this literature can further lead to the empirical testing of minority theories, the revision of mainstream theories and the creation of new theories and paradigms. %%%%